Indexing Representations in Language Production

ABSTRACT Language production, the process by which thoughts are formulated in sentences and spoken, is typically characterized as a sequence of stages, each stage associated with an internal representation of the utterance. A sentence-to-be-spoken initially exists as a conceptual representation, then as a series of linguistic representations, and finally as an articulatory representation. This project addresses the question of the time course of the construction of these representations, particularly those linguistic representations associated with the form of spoken words and their positions in a syntactic structure. For example, how far in advance of the word currently being spoken are upcoming words prepared? Can one distinguish between the selection of upcoming words as abstract lexical items and the retrieval of their phonological constituents? How is this advance planning affected by the syntactic and prosodic structure of the planned utterance? The investigators address these questions by applying to production the priming methodology that has proved so successful in the study of language comprehension. In the experiments, subjects prepare to say single words, phrases, or sentences. After this preparation, subjects are occasionally presented with a probe word to which they must respond in some way (e.g., by naming the probe). The probes bear either formal or semantic relations to words in the planned utterance, and thus the response times to the related probes (compared to unrelated control probes) can index the extent and nature of utterance planning. The investigators also develop and test an explicit spreading-activation model of form-related priming to aid in the interpretation of the data.